Proceedings for the Fourth Fire Behavior and Fuels Conference in St. Petersburg, Russia: conference in St. Petersburg, Russia between July 1-4, 2013

Abstract

#1339559
Simeoni, Albert J.

The PI is requesting funds to pay for the costs of editorial services, materials (CD-ROM, labels), and mailing for Proceedings for the Fourth Fire Behavior and Fuels Conference in St. Petersburg, Russia, to be held July 1-4, 2013. US researchers and speakers will be among the attendees at the conference, including, as the invited speaker, the director of the fire research station of the U.S. Forest Service in Missoula, MT.